Evolving Stable Solutions to Centralized and Distributed Dynamic Constraint Networks Using Hybrid Genetic Search

Many real-world problems such as robot motion planning, scheduling, frequency assignment in wireless networks, and network resource allocation can be represented as constraint satisfaction problems (CSPs) that are based on constraint networks. These types of problems are usually distributed, dynamic, and contain large numbers variables and constraints. The development of adaptive algorithms that are capable of solving large-scale, distributed, dynamic problems is a necessity. In this proposal, the PI describes a research program that investigates the use of hybrid genetic algorithms (HGAs) for evolving solutions to recurrent, dynamic CSPs (RDCSP). A RDCSP can be viewed as a CSP where the constraints, variables, and values of variables are temporarily added or removed. RDCSPs can be based on either centralized or distributed constraint networks. This research will lead to a greater understanding of the types of RDCSPs that are most challenging for HGAs and hill-climbing algorithms, and will result in the development of an HGA that searches more efficiently than the hill-climbing